Studies in Theoretical Physics

9415604 Kadanoff The topics for investigation include the study of the separation of drops from a mass of fluid, the development of techniques for measuring and modeling well-developed turbulence, and the study of flows past obstacles. The specific applications include data analysis for flow near a boundary, simplified models of energy dissipation in highly turbulent flow, some instabilities of the motion on the surface of liquids, and the motion of shaken sand. This theoretical project is co-funded by the Divisions of Materials Research and Physics. %%% This theoretical project involves both research and teaching. Under research, we study the separation of drops from a mass of fluid, turbulent flow, and the motion of granular materials. Under teaching, we train graduate students and postdoctorals to do research on the motion of fluids and also develop new course material, for example, for an undergraduate course on the subject of chaos. This project is co-funded by the Divisions of Materials Research and Physics. ***